Doctoral Dissertation Research: Social Mobilization and Change in Conservation and Development Projects: A Comparative Study in Brazil

This dissertation investigates how appropriate social networks help explain the relative success of four conservation and development projects in two regions in Brazil. The mobilization of multiple stakeholders, both local and beyond the project region, are critical for sustainable development. These networks also help diffuse a new identity supporting environmentally sustainable resource use. Both mobilization and diffusion depend on overlapping ties among the various stakeholders. Ethnographic and interview methods will be used to collect data on network connections and the flow of resources through those networks.